Collaborative Research: Continuation of Models of the Pacific Basin Circulation Based on WOCE-Era Observations

Toole/Robbins
This project is intended as a continuation of an attempt to synthesize a broad picture of the three-dimensional circulation of the Pacific using observations of deep hydrography and nutrients from the World Ocean Circulation Experiment (WOCE) together with data from subsurface floats. The approach to be taken will divide the Pacific into approximately 70 boxes and use a linearly constrained inverse estimation technique to deduce a circulation that best fits the observations while conserving mass and tracer fluxes.